GOALI - Ultrafine Grained and Nanostructured Ceramics : Influence of Processing, Grain Size and Strain Rate on Fracture Characteristics

GOALI-Ultrafine Grained and Nanostructured Ceramics:
Influence of Processing, Grain Size and Strain Rate on Fracture Characteristics

The focus of this project is to investigate the processing-structure-property relationships in bulk ultrafine grained (20-200 nm in grain size) ceramics that are rapidly consolidated to near theoretical density using novel synthesis and processing methods. The rate-dependent indentation fracture characteristics and the implications of these results to material removal during high-rate processes such as impact, dynamic wear and high speed grinding will be investigated. Based on the experimental and microscopic observations, analytical and numerical models will be developed to provide better insight into the effect of grain size on the mechanical response of this unique class of materials.
The proposed investigations are of significant practical interest, because they will assist in optimal design, successful use and exploitation of the full technological potential of these ceramics in dynamic applications. Insight gained will facilitate exploration of the 'nano-scale materials design space' for optimizing the grain size and the properties to meet specific challenges.